Studies of the Dynamics and Energetics of the Polar Cap Thermosphere and Mesosphere from Thule, Greenland in Support of the CEDAR Program

The CEDAR ( Coupling, Energetics and Dynamics of Atmospheric Regions) program is very much concerned with multi-station campaigns for acquisition of data on the polar region atmosphere. The topic of this program involves the operation of an optical observatory at Thule, Greenland. The observations made with high sensitivity electronic imaging systems, Fabry-Perot interferometers and spectrometers will be used to study the optical emissions from the airglow and the aurora as applied to the understanding of plasma convection across the polar cap and the motion of the thermospheric neutral atmosphere.